Ice Dynamics, the Flow Law, and Vertical Strain at Siple Dome

This award is for support for a three year project to measure the vertical strain rate as a function of depth at two sites on Siple Dome Antarctica. Ice flow near a divide such as Siple Dome is unique in that it is predominantly vertical. As a consequence, the component of ice deformation in the vertical direction, the "vertical strain rate" is dominant. Its measurement is therefore important for the calibration of dynamic models of ice flow. Two different, relatively new, high resolution systems for its measurement in hot water drilled holes will be employed. The ice flow model resulting from the measurements and flow law determination will be used to interpret the shapes of radar internal layering in terms of the dynamic history and accumulation patterns of Siple Dome over the past 10,000 years. The resulting improved model will also be applied to the interpretation of annual layers thicknesses (to produce annual accumulation rates) and borehole temperatures from the ice core to be drilled at Siple Dome during the 1997/98 field season. The results should permit an improved analysis of the ice core, relative to what was possible at recent coring sites in central Greenland. This is a collaborative project between the University of Alaska, the University of California, San Diego and the University of Washington.